Use of Direct Numerical Simulations and Lagrangian Methods in Turbulent Transport

ABSTRACT CTS-9503000 Thomas Hanratty Univ. of Illinois Advances in the analysis of turbulent heat transfer have been limited because of the need for more detailed information about the statistics of the fluctuating temperature and velocity fields than is obtained in laboratory studies. The proposed research responds to this need by using supercomputers to calculate the time-dependent, three-dimensional temperature and velocity fields. It is novel in three ways: It supplies results over a wide range of Prandtl numbers. I relates (for the first time) Eulerian and Lagrangian results. It explores the use of Lagrangian methods to describe sediment transport. The usual approach to transport problems is to use an Eulerian framework in which a differential equation is written to describe the concentration changes in a fixed volume in space. A viewpoint to be explored in this research is that physical understanding emerges in a more natural way by using a Lagrangian frame work, which considers concentration fields of a transported species (thermal markers or sediment) as resulting from the contributions of a number of sources and sinks. For the problems considered, the fundamental building block is dispersion from and infinitesimal source at the boundary. The head transfer system is turbulent flow through a channel in which the bottom wall is heated and the top wall is cooled. Direct numerical sumulations will be carried out for Pr=0.05-40. Lagrangian methods will be used to extend these to Prandtl numbers as high as 2000. Turbulent transport of sediment in a horizontal rectangular channel will be considered.